1991 Gordon Conference on Atomic Physics; Wolfboro, New Hampshire; July 1-5, 1991

This is the tenth in a series of Gordon Conferences on Atomic Physics. It will be held July 1-5, 1991 at Brewster Academy, Wolfboro, New Hampshire. The meeting emphasizes emerging areas and major advances in existing areas of atomic physics, in both theory and experiment. Conference organizers emphasize the participation of young, highly promising graduate students and postdoctoral scientists, along with mature scientists, in an environment which is conducive to spontaneous discussion and informal exchange of ideas.